REU: Research Experiences for Undergraduates Site at East Carolina University for Disabled Students

This is a Research Experiences for Undergraduates project. It provides research experiences for ten students at East Carolina University. Students will participate in projects involving ecology, palcontology, chemistry and physics. The program is designed for and includes disabled scientists and students.